Conference: The Fifth International Conference on Plasmodesmatal Biology to be held in Monterey Peninsula, California on August 17-21, 2004.

The Fifth International Conference on Plasmodesmatal Biology will be held at Asilomar. Topics include plasmodesmata structure and development, macromolecular trafficking, gene silencing, and virus movement. NSF funding will be used to support students and post-doctoral fellows.